MRI: Acquisition of Nikon A1R-MP Spectral Confocal/Multiphoton Microscope with Widefield HyperSpectral Imaging System for the Jordan Hall Imaging Facility

This funding will enable Clemson University to acquire a spectral confocal /multiphoton
microscope equipped with a widefield spectral imaging system. The new system will be housed
in the Jordan Hall Imaging Facility (JHIF), which is the advanced light microscopy core imaging
facility at Clemson University. The primary goal of the JHIF is to acquire and maintain advanced
light imaging equipment necessary for conducting leading edge research, thus, providing the
Clemson research community access to the tools necessary to compete with other top research
institutions. As a core facility, the JHIF is dedicated to the training of investigators at all levels
from undergraduate and graduate students to postdoctoral researchers. In keeping with the MRI
NSF vision, this shared equipment would improve the quality and expand the scope of research
at Clemson. The multiphoton capabilities will be utilized by Clemson researchers who work with
live cells and whole organisms, such as chick embryos, zebrafish, and Caenorhabditis elegans,
as this technique provides high resolution image acquisition with less phototoxity and deeper
resolution than conventional confocal microscopy. The widefield hyperspectral capabilities of
this instrument will benefit Clemson researchers currently engaged in nanoparticle studies,
allowing them to not only visualize uptake of nanoparticles by cells in real time, but to also
identify chemical characteristics of these nanoparticles. The addition of these capabilities will
significantly influence the quality of research in the fields of biological science, bioengineering,

The Clemson Jordan Hall Imaging Facility is dedicated to the training of undergraduate and
graduate researchers in advanced light microscopy techniques. In addition, the JHIF manager
introduces high school teachers to advanced light microscopy through SCLife summer courses,
giving them an opportunity to work with these techniques. To attract and assist underrepresented
groups in the sciences, the JHIF offers a minigrant program for up to 10 hours of beam time on
the instruments. The increased research scope that this microscope will bring to Clemson
researchers could result in enormous benefits to society, including protecting the environment,
food safety, new drug delivery systems, and safety from bioterrorism threats.